Development and Utilization of a Database for the Flora of Mount Kinabalu

Dr. John Beaman proposes to complete the preparation of a published inventory (constructed from a microcomputer database) of the plant species on Mt. Kinabalu in Borneo, Malaysia. Mt. Kinabalu may support the world's highest diversity of plants per unit area, and there are many controversies surrounding the means by which this extraordinary diversity arose and has persisted. Dr. Beaman has completed the identification of more than 16,000 specimens and has developed a microcomputer database for data on the specimens, their taxonomic identities, and their geographic locations. The locality data provides the means by which plant distributions can be analyzed relative to soil type, geology, and other environmental factors. Dr. James Beach will devote 18 months to developing research capabilities for the inventory using a Geographic Information System (GIS) at Michigan State University. The proposed research has implications for our understanding of the southeast Asian flora, for conservation efforts in the region, and for general questions regarding plant ecology, diversity, and evolution. Parallel development of the specimen database and GIS applications will break new methodological ground for the botanical community as a whole.